Interactive Design of Single and Multi-Degree of Freedom Spatial Mechanisms

The objective of this research is to develop a new interactive tool for the kinematic design of single and multi-degree of freedom spatial mechanisms and robot systems. The goal is to provide a designer the ability to identify the dimensions of a spatial linkage which guides the movement of a workpiece in three dimensional space. Spatial mechanisms are now found primarily in the form of robot manipulators. Mechanical hands, walking machines, and multi- armed robot systems are examples of more complicated spatial mechanisms that will be impacted by this research.